Joint US-India Workshop on Nondestructive Evaluation of Concrete, Award in Indian Currency

9631899 Maji Description: The Joint US-India Workshop on Nondestructive Evaluation (NDE) of Concrete will take place at the University of Roorkee, Dec. 14-15, 1996. It follows the 14th World Conference on Nondestructive Testing (NDT) being held in nearby New Delhi. The co- organizers are Arup Maji, University of New Mexico and S.K. Kaushik, University of Roorkee. The workshop will focus on the application of diagnostic methods, including both established techniques and emerging technologies, to cement based composite materials. Participants will identify specific research areas in NDE that would yield mutual benefit from Indo-US collaboration. Scope: Roorkee is a leader in concrete technology and India's premier institution for Civil Engineering education and research. The workshop is locally co-sponsored by the Indian Institute of Cement and host, Roorkee University. INT will provide airfare for six U.S. participants including young scientists and women. Proceedings and summary papers will be published in both countries. ***